Summer Workshop and Leadership Activities Project for Teachers of High School Chemistry

Is a 12 month program that will equip 40 Advanced Placement chemistry teachers to be more effective in the presentation of advanced placement chemistry courses, and to provide in-service assistance to their colleagues. The project includes intensive training for five weeks on five key topics: chemical equilibrium, chemical thermodynamics, oxidation-reduction reactions and electrochemical cells, chemical kinetics, and bonding and geometry of molecules. There is a strong emphasis on laboratory experiments designed to effectively teach these fundamental topics.